Dull Knife Memorial College TCUP Planning Grant

The purpose of this planning grant is to conduct an assessment of Dull
Knife Memorial College's SMET curriculum and infrastructure in order to
develop an institutional SMET action plan that will be used as the basis for a
full TCUP grant to be submitted by May 2002. In addition, the College will
develop assessment instruments to determine the effectiveness of its SMET
instructional programs and to develop a system to track SMET graduates
that transfer to 4-year colleges and universities.
The planning period will be for 12 months and will include three
phases:
Phase 1 (October 1, 2001 - December 15, 2001) assessment of SMET
infrastructure.
Phase 2 (January 1, 2002 - May 1, 2002) development of institutional
plan and full TCUP proposal.
Phase 3 (August 15, 2002 - September 30, 2002) development of
assessment instruments.
By the end of the grant period Dull Knife will have developed an
assessment of its SMET programs, developed an institutional plan to
enhance its SMET program, submitted a full TCUP grant, developed
instruments to evaluate its SMET courses, and developed a student tracking
system.